SHF: Small: LeakDroid: Exposing Leaks and Jank in Android Applications

Android software is widely used in smartphones, tablets, and various
other devices. In devices with limited resources, an application that
consumes too many resources can lead to slowdowns, crashes, and
negative user experience. Software defects related to leaking of
resources are widespread and varied, but there does not exist a
comprehensive strategy for testing and debugging of such leaks.
Another common problem in Android software is when an application
takes too long to respond to a user action, in which case it is
perceived as sluggish and of low quality. There do not exist testing
techniques or tools for exposing the underlying software defects
leading to poor responsiveness.

Resource leaks and poor responsiveness can have severe effects on
software reliability, performance, and marketplace success. This
project develops LeakDroid, a novel approach and toolset for testing
and debugging of such defects. Static code analyses are used to
extract precise GUI models of Android applications; such analyses are
essential for many algorithms for program understanding, optimization,
testing, and debugging. Next, GUI tests are generated based on common
leak patterns, through sequences of GUI events that should not lead to
increases in resource usage. Poor responsiveness is exposed with tests
that introduce delays at chosen code locations. Debugging techniques
are then employed to find leaking data structures and poor
responsiveness operations, as well as the corresponding defective
code. These contributions advance the state of the art in the
important area of analysis, testing, and debugging for Android
software. When these advances and tools become part of software
development practices, they would result in lower costs and increased
quality applications for millions of users of mobile devices. The
educational efforts of the project develop the skills of the next
generation of creators of mobile software